UCI CAUZ Project

This program will promote the benefits of using underutilized and often misused education resources of zoological parks. The project will involve the University of California at Irvine, Santa Ana and Irvine School Districts, San Diego and Santa Ana Zoos, and other members of the recently formed Consortium of Aquariums, Universities, and Zoos (CAUZ). Thirty-five Orange County inter-mediate local teachers will have the opportunity to enhance their understanding of science content and their professional experience through this unique cooperative effort. The four-week summer workshop will approach natural science through tropical forest and biological concepts. The proposed result will be the development of a model classroom science program that will be easy to use and feature exciting dimensions of teaching and learning.